CISE Research Instrumentation: SAMSON--Scalable Active Memory Server on the Net

9818342
Chiueh, Tzi-Cker
Kaufman, Arie
State University of New York at Stony Brook

SAMSON--Scalable Active Memory Server on the Net

This research instrumentation enables research projects in:

- Computer Systems Research,
- XSB Tabled Logic Programming,
- Formal Verification and Model Checking, and
- Graphics.

The SAMSON project aims to build up a cluster-based network memory server. Thus, to support the aforementioned projects, this award contributes to the purchase of several Compaq Alpha machines connected by four 8-port 1.2 Gigabit/sec Myrinet switches, with 21 GBytes of main memory and 110 GBytes of disk space. The software platform consists of the Linux operating system, the message passing library for Myrinet hardware, and a basic network paging subsystem. Four research groups in the Computer Science
Department at the State University of New York-Stony Brook will benefit from the massive amount of memory in the SAMSON server. 1. The Systems group will use SAMSON to develop advanced network memory services such as application-specific storage management, as well as to gather access characteristics of memory-intensive applications. 2. The Formal Verification group will use SAMSON to re-examine space/time tradeoffs in new and existing verification algorithms. 3. The XSB group will exploit the memory in SAMSON to further the advances of tabling techniques in Logic Programming. 4. The Graphics/Visualization group will investigate the interaction of multi-resolution rendering with the memory hierarchy in SAMSON. With SAMSON, the researchers will have access to an order of magnitude, more physical memory than is currently available, and will be able to experiment with regions of the design space that were not possible previously.